Workshop: Using Narrative and Data to Communicate the Value of Science: A Workshop

The scientific community has been under increasing pressure from policymakers and the public to explain how research contributes to the public good. The community has emphasized two distinct approaches to explaining its operations and value. The first is the use of narratives that can make the work of science more accessible and engaging to nonscientists. The other is the use of new data mining and analysis methods to document quantitatively the complex paths by which research progresses and eventually contributes to a variety of societal goals. While both of these approaches have proved useful, the goal of this workshop is to explore ways that they might be combined into a hybrid approach that will be even more effective.

This workshop will assemble experts in the narrative and data-driven science communication approaches with leading science researchers to discuss how these various perspectives can be merged to define a template for a type of communication that encompasses the appeal of narrative, the rigor of new analytic data, and the understanding of how science works in practice